U.S. Participation in the Fifth International Conference on Urban Storm Drainage; July 23-27, 1990; May Theater; Suita, Osaka, Japan

This is an award to provide support for travel of six U.S. participants to the Fifth International Conference on Urban Storm Drainage that will be convened in Osaka, Japan July 23-27, 1990 under the joint auspices of the International Association for Water Pollution Research and Control and the International Association for Hydraulic Research. The six persons for whom partial travel support will be provided through the grantee institution are Wayne C. Huber, University of Florida; Shaw L. Yu, University of Virginia; Chin Y. Kuo, Virginia Polytechnic Institute; Gregory L. Wallace, Arizona Department of Water Resources; Ben C. Yen, University of Virginia; and Jacques W. Delleur, Purdue University. This project is being jointly supported by the Natural and Manmade Hazards and the Environmental Systems program for its relevance to flood and drought as well as to environmental issues in surface and groundwater quality.